Acquisition of a Mass Spectrometer and Upgrading of FAB-MS Capabilities

Mass spectral (MS) techniques such as Electron Impact (EI) and Fast Atom Bombardment (FAB) are used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The acquisition of instrumentation capable of carrying out these state-of-the-art techniques is essential for the prosecution of frontier research in several fields of chemistry. The purchase of a new mass spectrometer and the upgrading of FAB-MS capabilities will be facilitated by support from the Chemistry Shared Instrumentation Program and the Biological Instrumentation Program. The major areas of research that will be enhanced include: 1) The chemistry of phosphazenes 2) Glycosation-site analysis of rat alpha-1 acid glycoprotein 3) Chemistry of pterins 4) Capillary zone electrophoresis-mass spectrometry 5) Template controlled oligomerizations 6) Synthetic organometallic chemistry